Inverse Scattering Problems and Applications

This research is to study various aspects of inverse scattering
problems arising in wave propagation and in quantum mechanics
and their applications. These include wave propagation in a
nonhomogeneous and absorptive medium and the determination of
the nonhomogeneities and absorptivity of the medium, X-ray
reflectometry and the determination of material properties of
stratified thin films by probing them with X-rays, focusing of
waves at target locations and the determination medium properties
by using wave focusing, developing exact quadratures to analytically
continue a reflection coefficient from an interval to larger
domains and their numerical implementation, and solving inverse
scattering problems in order to recover functions with slower
decay conditions at infinity.

The inverse scattering problems investigated have important applications in many
areas such as materials science, nondestructive testing, acoustic
imaging, and remote sensing. The principal aim is to determine
properties of a target in a remote fashion: send a wave onto the
target, analyze the scattered wave, and infer the properties of the
target from the scattering data. In addition to its practical
importance in physical sciences, engineering, and other applied
areas, the research will contribute mathematical techniques to
various areas of mathematics and it will also help to train
some graduate and undergraduate students in applied mathematics.